Developmental Genetic Analysis of Paternal Effect Mutations of Drosophila

The objective of this proposal is to investigate the function of the paternal contribution to early development of Drosophila melanogaster. For this, Dr. Schubiger will screen male sterile mutations for paternal effect mutations that permit normal sperm motility and egg penetration but subsequently disrupt embryogenesis. In addition to identifying the spectrum of genes which, when mutated, cause paternal effects, he will first characterize the existing mutation ms(3)K81. By analyzing the embryonic defects caused by paternal effect mutations, the nature of the mutations and their wild type gene products, he expects to determine the unique role of the paternal nuclear and centrosomal contributions in the Drosophila embryo.